Cohomology Theories for Algebraic Varieties

The investigator studies the theory of algebraic cobordism,
recently constructed by the investigor and F. Morel, as well
as generalized cohomology theories for algebraic varieties
and schemes, the relation of rational equivalence in the
Morel-Voevodsky algebraic-homotopy category, and a refinement
of Asakura's arithmetic Hodge cohomology. The investigator
attempts to construct a theory of higher algebraic cobordism,
along the lines of Bloch's higher Chow groups, examines the
category of cobordism motives, and tries to give a theory of
algebraic higher elliptic genera. In addition, the investigator
examines the generalization of the motivic cohomology to K-theory
spectral sequence to other cohomology theories on algebraic
varieties, and considers the relationship of this spectral
sequence to the slice spectral sequence of Voevodsky, using the
notion of rational equivalence in the algebraic homotopy category.
Finally the investigator defines a variation of Asakura's
arithmetic Hodge cohomology and uses this to construct an infinite
sequence of cohomology theories which conjecturely give a better
and better approximation to motivic cohomology.

The investigator's research involves a mixture of algebraic
geometry and algebraic topology. Algebraic geometry is the study
of solutions of equations using both algebra and geometry. For
example, one can study a circle by examining its equation, or by
looking at its geometric properties. Algebraic topology studies
spaces by attaching algebraic invariants to them, invariants which
can often be computed explicitly. The investigator takes methods
and constructions in algebraic topology, and then modifies and
refines them so that they can be used to define algebraic versions
of the topological invariants. These new algebraic invariants are
then applicable for studying subtle properties of solutions of
equations.